CAREER: Helping or hindering? Determining the influence of repetitive marine heatwaves on acclimatization of reef-building corals across biological scales

Ocean warming has led to staggering losses of coral on reefs worldwide and is now among the most pressing of stressors threatening the survival of coral reef ecosystems today. As marine heatwaves associated with ocean warming become increasingly frequent, it is urgent to understand if and how reef-building corals will be able to respond to these repeat stress events and thus survive in a rapidly warming ocean. To address this problem, this project is investigating how corals on the reef respond to recurring marine heatwaves to determine if repeat exposure to heat stress 1) promotes coral tolerance of higher temperatures via acclimatization or 2) leads to an accumulation of stress that reduces performance and survival following future stress events. The results of this study advance understanding how the current generation of corals will respond to increasingly warmer oceans, informing management of coral reef ecosystems. The project also supports training for students from secondary schools through advanced postdoctoral researchers, including development of a new hands-on course-based undergraduate research experience (CURE) , hands-on coral reef biology activities for incoming first-generation, low-income undergraduate students, and professional development for middle and high-school teachers.

Acclimatization following exposure to sub-lethal heat stress may be an important protective mechanism for corals. However, the role of environmental memory of marine heatwaves in driving acclimatization or, conversely, stress accumulation and sensitization of reef-building corals is not well understood. This study addresses this question using a combination of in situ and mesocosm experiments to assess the cellular, organismal, and ecological consequences of repeat heatwaves on corals with contrasting bleaching histories. Specifically, the researchers are monitoring adjacent conspecific pairs of bleaching-susceptible and bleaching-resistant individuals of two reef-building coral species in Hawaii, Montipora capitata and Porites compressa. These corals, which have been monitored for over 7 years through multiple bleaching events, are being used to test the hypothesis that environmental memory of marine heatwaves differentially alters coral thermal performance due to phenotypic variation in acclimatization ability within and between species. This work is 1) identifying whether the bleaching thresholds of corals with different bleaching histories varies through time, 2) assessing the consequences of these phenotypes on coral calcification, survival, and population size structure, 3) examining the influence of environmental memory of heatwaves on coral physiology and 4) evaluating the contribution of algal endosymbionts to acclimatization.

This project is supported by the Biological Oceanography, Integrative Ecological Physiology, and Ocean Education Programs.